A Regional Model of the Arctic Land-Atmosphere System

This award is part of the Arctic System Science (ARCSS) Program, a U.S. Global Change Program. The research project will implement a regional model of the arctic land-atmosphere system, to use this model to simulate the land-atmosphere interactions that control the hydrological cycle of a key arctic region, and to project changes in the climate and hydrology of the arctic region. Plot-size and mesoscale topography and vegetation data will be incorporated into the regional model at 40 km resolution to provide a working model of the regional hydrological cycle and a framework for the scaling up of plot size measurements of surface variables and processes in northern ecosystems. This research project is a collaborative component of a larger interdisciplinary program known as the ARCSS FLUX Program.